Microbial Biochemisty and Genetic Regulation

9727350 The Division of Medical Sciences is a part of Harvard University that supervises Ph.D. training programs of the Graduate School of Arts and Sciences for students who are engaged in basic biological research in laboratories on the Medical school campus. The Division will conduct a 1O-week summer research program for undergraduate students to participate in research projects in the field of microbial biochemistry and genetic regulation. In addition to their research projects, students participate in a weekly student faculty research discussion seminar series at which they teach other about their projects, and in a weekly career development series, which covers such topics as choosing graduate programs, completing successful applications, and interviewing. Three sessions each summer are devoted to discussions of ethical issues in biological sciences. Students will be recruited from a nation wide pool, with a particular emphasis recruiting students who are interested in careers in biological research and on recruiting qualified minority students and women. Students will have the opportunity to carry out projects in the laboratories of any of 18 Division faculty members who are participating in this program. Students will also have opportunities to meet other majority and minority research faculty and graduate students in both academic and social settings. These opportunities are provided by the program, by the individual laboratories, and by the housing accomodations, which are in the dormitory on the Medical School campus. Students receive a stipend, housing, travel to and from program, and health insurance for emergency illness and accidents.